Intelligent Cell Engineering and Control: A Neural Network Approach

9414332 Chen This research investigates an approach that will enable advances in design and control technologies for advanced manufacturing systems. The purpose of this research is twofold: (1) to design and develop a neural network based decision support system for use in design and configuration of advanced manufacturing cells and cell control systems, and (2) to explore an intelligent shop floor control framework for on-line scheduling and control of Flexible Manufacturing Systems. This innovative new design and operation methodology will be illustrated through an implementation exercise, at laboratory settings, in controlling a cluster of computer workstation which simulates the stochastic operating characteristics of shop-floor manufacturing machinery/equipment. The intelligent shop floor control scheme constitutes an integrated environment with innovative cell control techniques which will not only assure that feasible control actions be taken but also that the continuously improved control decisions be implemented as cell operation time goes by.